The Young Scholars Program

9452689 Mitchell Wiley College seeks to initiate a residential, Young Scholars program, in science and mathematics for 30 high-ability and high- potential African American students in grades 11th and 12th. The project is a six-week program in interdisciplinary science for students residing in the rural (24 county) East Texas region. The participants will be provided with lectures and hands-on laboratory and research experiences in chemistry, physics, pre-calculus, and computer science during the summer with follow-up instructional and research activities during the academic year.